CSR---PDOS: Information Pedigree

As the scope of available information grows, it is increasingly
difficult to find what one needs when it is needed. The growth of
search as an industry is testament to this problem, but existing tools
are incomplete solutions. They index content, but not context. They
capture only static, syntactic relationships, not dynamic, semantic
ones. Perhaps most importantly, they have access only to information
stored either on a user's local machine or publicly-accessible
distributed stores---other sources are neither indexed nor searchable.
Information Pedigree solves this problem by capturing context and
semantic relationships between information items, collecting disparate
relationship meta-data to support searches, and providing for
availability of relevant items created on machines controlled by
individual users. Information Pedigree achieves this goal by
instrumenting the flow of information between a user's applications
and services, as well as the flow of information between different
users. By observing these transactions, we form a contextual and
semantic index over data that is used, simplifying its retrieval for
later use.

Information Pedigree will make it easier for people to find and share
data, without placing additional burdens on them or their IT support
staff. This greatly reduces time wasted in managing information,
allowing information workers to be more productive. The results from
this project will be widely disseminated in the research literature,
and a prototype of the system will be made available to other
researchers as well as users. This project will train several
graduate students, and influence the curricula of several graduate and
undergraduate courses.